BUSYTOWN

9453790 Eichinger The Oregon Museum of Science and Industry is requesting $971,288 over three years for the development, formative and summative evaluation of two traveling exhibits. The 5,000 sq. ft. traveling exhibit is designed for children ages 3-8 and their families, using the context, setting, characters and challenged portrayed in the books of Richard Scarry, a noted children's author. A 2,000 sq. ft. mini-version traveling exhibit will be produced for use in smaller venues. Parent, teacher, and staff guides will be prepared and distributed. This exhibit gives strong emphasis to facilitating parent interaction with their children, and has activity areas for parents built into the exhibit. There is also an emphasis on anti-bias content within the exhibit.